Cosmic Background Isotropy Measurements from the South Pole

This project will attempt to measure the isotropy of the cosmic microwave background radiation (CMBR) from South Pole Station. The measurements will be made by two different instruments working at different angular size scales and frequencies and using different detection techniques. One of the instruments will make measurements on an angular scale of 20 minutes at a frequency of 90 GHz using a bolometer detector. The other instrument will measure angular scales of 4 degrees at a frequency of 19 GHz using a ruby maser detector. The instruments have the sensitivity to set new upper limits on the anisotropy of the CMBR, and if they do so it will be necessary to reformulate the current cosmological theories. A detection of anisotropy would be an important confirmation of the current theories. This is probably the most important cosmological measurement that can be made, and the South Pole is the best place on earth to make it. The institution and the proposer are outstandingly qualified to perform the experiment. The proposer has developed the instruments with funding from a Presidential Young Investigator grant especially awarded for that purpose.